AAAS Science & Technology Policy Fellowships

The American Association for the Advancement of Science (AAAS) and the National Science Foundation (NSF) will continue its collaboration in providing to early- and mid-career scientists and engineers experiential professional development and public service fellowships via the AAAS Science and Technology Fellowship Program. Consistent with the immersion model adopted by AAAS, Fellows at NSF will be selected annually through a competitive process and placed in organizations throughout the Foundation. Fellows will work with NSF staff on a broad range of activities in order to gain insight into how national science and technology policy goals are translated into and reflected by NSF's mission and strategic goals and how and by whom national science and technology policy is driven, shaped and prioritized. NSF fellowship assignments are designed to: educate and expose Fellows to NSF programmatic planning, development and oversight activities in all fields of fundamental research via hands-on engagement; utilize the Fellows' expertise on projects that apprise NSF officials in areas of mutual interest to the Fellow and the host organization; and provide developmental opportunities to inform future career decisions. The program includes an orientation on executive branch and congressional operations, as well as a year-long suite of knowledge- and skill-building seminars involving science, technology and public policy within the federal as well as NSF contexts.

In the long-term, the AAAS Fellowship program seeks to build leadership capacity for a strong national science and engineering enterprise. Upon completion of the Fellowship, Fellows will have gained: a broader understanding and increased insights about the development and execution of federal-level science, technology, engineering and mathematics policies and initiatives as well as how policy and science intersect; enhanced skills in communicating science to support policy development; and a greater capacity to serve more effectively in future leadership roles in diverse environments, including public and policy arenas, academia and the private sector. The ultimate outcome of the Fellowship program experience -- policy savvy science and engineer leaders who understand government and policymaking and are well-trained to develop and execute solutions to address the nation's challenges.